The Children's Adventure Project

In the Fall of 1994 The New York Botanical Garden will begin its second 100 years of commitment to science education with the opening of the Children's Adventure Garden and the Children's Adventure Trails. As two components of the Children's Adventure Project , these informal science education facilities will use participatory discovery to engage urban children and their families in learning botanical science, inquiry skills, positive attitudes towards science, and the methods of scientists. In the 1.5 acre Adventure Garden children will interact with living plants and fabricated exhibits to discover fundamental principles of plant biology; and in the one mile of Adventure Trails they will closely observe interdependencies of complex ecosystems using the framework of these fundamental principles. To expand visitor understanding of plant biology and the ways that scientists study it, Investigation Stations, integral components of each facility, will be placed so that visitors will handle, sense, and observe living plants in situ and interact with fabricated exhibits and scientific tools. The Project will be developed by NYBG staff educators and scientists with on-going participation of a broad spectrum of advisors and consultants, including exhibition designers, evaluators, community school teachers, and environmental education specialists. ***